Proposal Research Fellowship in Plant Biology

This is an individual award for the Postdoctoral Fellowship in Plant Biology. The applicant received his Ph.D. in biophysics at the University of California at Berkeley. He proposes to carry out his fellowship research ion the laboratories of Dr. Michael Freeling and Dr. Russell Jones at University of California at Berkeley. The research entitled "The role of calcium as an effector of growth in maize primary root gravitropism: physiological and genetic studies" concerns the genetic and cellular basis for gravitropism. The research will broaden the training of the PI into plant genetics, molecular biology and cell biology.